NSE: Fabrication of Biomolecular and Polymeric Nanostructures by Proximal Probes

This four-year Nanoscale Interdisciplinary Research Team (NIRT) project at Duke University, with Professor Robert L. Clark as principal investigator, addresses both scientific and engineering aspects of nanopatterning of surfaces and in-situ nanofabrication that will directly impact biotechnology, biologically inspired engineering, transducers and electronics at nanoscale. Instrumentation based on scanning probe lithography and dip-pen lithography will be developed for use in specially designed nanolithography. New fabrication methods will be developed for nanometer length structures with biomolecules and stimulus-responsive macromolecules.